WDM Broadcast Networks and Massively Parallel Computers

This is a career advancement award to apply theoretical methods from the study of interconnection networks to the study of all-optical broadcast networks. The goal of the research is to develop new scheduling algorithms to improve the performance of broadcast networks that use wavelength division multiplexing. The scheduling algorithms will take into account an arbitrary set of system parameters that change with technology. The research will provide insight into the user of multiple wavelengths and tunable devices in optical networks.